GOALI/IUCP: Design and Development of a Novel Technology for the Synthesis and Fabrication of Cubic Boron Nitride Composite Coating for Cutting Tools

This research project is to investigate and develop a novel hybrid technology, a combination of electrostatic spray coating (ESC) of cubic boron nitride (cBN) powder and chemical vapor infiltration (CVI) of titanium nitride (TiN) phase in the cBN matrix, a revolutionary method for the fabrication of cBN:TiN composite coated cutting tool inserts. The research program will be executed in collaboration between the University and an industrial partner. This proof-of-concept research effort will provide a unique way to achieve maximum concentration of cBN in cBN-TiN composite layer by maintaining good properties relevant to cutting tool application. The success of the fundamental study and applied technological developments will not only be instrumental in the development of the cBN coated tool product but will lead to innovative products.